A Formal Approach to Real Time System Specification and Analysis

The objective of this project is to develop a formal framework for the specification and analysis of real-time systems, and tools to support them. Since the correctness of a real-time system depends on not only how concurrent processes interact but also the time at which these interactions occur, the formal framework must be capable of modeling delays due to process synchronization as well as contention for shared resources. While most current real-time models capture delays due to process synchronization, they abstract out resource-specific details by assuming idealistic operating environments. On the other hand, scheduling and resource allocation algorithms used for real-time systems ignore the effect of process synchronization except for simple precedence relations between processes. To bridge the gap between these two disciplines, a specification language called Communicating Shared Resources (CSR), and a priority-based process algebra called the Calculus for Communicating Shared Resources (CCSR) are being developed. CSR supports the high-level description of real-time systems, whereas CCSR provides the resource-based computation model of CSR and a prioritized strong equivalence for terms based on strong bisimulation. Based on CCSR's formal framework, three tools to analyze process behavior will be developed: a simulator, a model checker and a mechanical theorem prover. The tools will be integrated in a single analyzer to be used at different stages of proving that a specification is correct.